Network Access Point Manager For NSFNET and the NREN and theNREN (sm) Program

ABSTRACT MFS PI: Steve Feldman NCR - 9321077 This award supports the creation, operation and management of a Network Access Point (NAP) and provision of related NAP services in the Washington, D.C. area as called for by Program Solicitation NSF 93-52. This is one of three for such NAP services (at 4 locations) to be funded as a result of that solicitation.